Mathematical Sciences: The Representation Theory of Finite Groups

This award supports research in finite group representation theory. The principal investigator will investigate the many correlations between group-theoretic structure and the representation theory of finite groups. In particular, he will work on Alperin's weight conjecture and Brauer's k(B) problem. The research supported concerns the representation theory of finite groups. A group is an algebraic object used to study transformations. Because of this, groups are a fundamental tool in physics, chemistry and computer science as well as mathematics. Representation theory is an important method for determining the structure of groups.